Continuous Media Middleware Toolkit

A consortium will be formed to support a streaming media toolkit and applications for high-bandwidth distributed collabortion. The toolkit and applications will be based on the Internet Mbone tools and Mash toolkit that are widely used in the research community. The consortium will manage the source code, fix bugs and integrate code developed by the research community, establish standards, create documentation and training material, manage the web site and by-weekly distributed video conferences, organize working groups, and generally act as as focus for continued development of the toolkit and applications. A high-quality lecture archive will be established and procedures defined that will allow other research organizations and individuals to develop content, contribute lectures to the archive, and establish their own archives.